Upgrade of a Bruker AMX 500 MHz Nuclear Magnetic Resonance Spectrometer

9908399

Abstract

This project involves the upgrade of a 500 MHz NMR spectrometer to provide state-of-the-art capabilities in order to support the research of a group of users in the Department of Chemistry at University of Massachusetts, Amherst. The major research projects will be facilitated by the availability of the new instrumentation. This research will include determination of the structure of the peptide-binding domains of the molecular chaperones DnaK and BiP; determination of bound conformation of signal sequences upon interaction with their receptors; determination of the structure of an SRP-binding RNA fragment alone and in complex with a polypeptide; studies of the mechanism of folding of the predominantly beta-sheet protein, cellular retinoic acid biding protein; structural analysis of myoglobin mutants as models for guanylate cyclase; conformational studies of model helical peptides; determination of the active site geometry of metalloproteins; determination of the structure and dynamics of membrane proteins, including E. coli chemotactic receptors and colicin A; studies of domains of the E. Coli chemotactic receptor that are involved in adaptation; and determination of the structures of ribosomal proteins and the RNAs to which they bind. Additional projects will further utilize the remaining time on this instrument.